Discovery - Based CAI Fundamentals of Science Course focusedon Relationship Thinking, History of Science, and Math Applications

The project being developed will meet a demonstrated need to provide an interesting, challenging entry level science course in community colleges to improve the success rates of educationally disadvantaged students. Many students are under prepared for mastering concepts in college-level biological and physical sciences because they do not understand principles which use relationship thinking. The objective is to develop an interdisciplinary, experiment-based FUNdamentals of Science course with a history-of-science theme and discovery methods to investigate measurement, density, gas laws, electric circuits, and light, including lasers. Relationship thinking and skills to use math as a tool will be developed by having students use a computer program to create graphs of relationships from data. The program will target the many new and returning students who function at approximately the intermediate algebra level. This group includes especially women, African-Americans, and Hispanics who need a successful experience in their introduction to the sciences. Three four-year college professionals in undergraduate science education have agreed to serve as advisors for this project. Student progress will be tracked and analyzed. Detailed explanations for integrating experiments and computers into the entry level course will be developed and disseminated. A workshop (Innovations in Science Teaching) to present the methodology and materials developed will be scheduled for science teachers, including teachers from area secondary schools.